Planning Grant for Participation in the Power Systems Engineering Research Center (PSERC)

EEC-0001282
Kezunovic

This planning grant funds Texas A&M to become a research site of the multi-university Industry/University Cooperative Research Center for Power Systems Engineering.

The research projects being considered for addition to the Center's established research agenda are, 1. Power System State/Parameter Estimation and Measurement Design for Distributed Multi Utility Operation, 2. Power System Reliability Analysis Including Dynamics and Control Effects, 3. An Approach to Select Cost-Effective ASD Ride-Through Technologies, 4. Accurate Fault Location in Transmission and Distribution Networks Using Modeling, Simulation and Limited Field Recorded Data, 5. Power System Monitoring Using Wireless Substation and System-Wide Communications.